Intelligent Structures Group Research Experiences for Undergraduates Site

This project will support 8 students during the summer of 1991 and 8 more students during the academic year 1991-92 to do research in the Intelligent Structures Group within the Department of Electrical and Computer Engineering at the University of New Hampshire. The research projects revolve around the development of new hardware structures for embedding intelligence in dedicated electronic systems. Basic research is performed in the areas of distributed fault-tolerance, neural networks, synthetic vision, and learning systems in control and signal processing.